Connection to MIDnet

The University of Tulsa has several researchers who would benefit from access to supercomputing. They will be connected to the MIDnet, a regional network which connects to the National Science Foundation Network (NSFnet) through medium speed (9,600 bits per second) communication lines. Six federally-funded supercomputing centers can be accessed through NSFnet.